XXVI International Conference on High Energy Physics; Dallas, Texas; August 6-12, 1992

Professor Schwitters, Chairman of the International Organizing Committee of the 26th International Conference on High Energy Physics (ICHEP 92). The conference will be held in Dallas, Texas, on August 6-12, 1992, on the Campus of Southern Methodist University. This grant, in support of the conference, will continue the tradition of the 'Rochester' international conferences started by Professor Robert Marshak at the University of Rochester in 1950. These conferences, held every other year under the auspices of the International Union of Pure and Applied Physics, bring together over 1200 physicists from throughout the world to discuss the latest results in elementary particle physics research.